The Economic Principles of Engineering Design (A Workshop)

The purpose is to provide a workshop to transfer knowledge regarding the economics of engineering design to all engineering faculty who teach design-intensive courses. This knowledge was gained, in part, from a three-year, multi-disciplinary, multi- institutional National Science Foundation research grant entitled, "Integration of Economic Principles with Design in the Engineering Science Component of the Undergraduate Curriculum" (DUE-9155917). Multimedia based software and extensive course notebooks will be distributed to each workshop participant. This faculty workshop will be presented two times and will be complemented by a one-day workshop in which the participants will report on their success in implementing workshop materials in courses taught at their home institutions.